SBIR Phase I: Uncopying Xerox

9860704
This Small Business Innovation Research Phase-I project seeks to develop "uncopier" units to do "at source deinking of one sheet at a time". Uncopiers will seamlessly extend the capabilities of copiers to remove laser-xerographic ink from waste letter or legal sheets. ACIM-assisted deinking, i.e. precisely controlled acoustic microcavitation, uses only SILENT SOUND and CLEAN WATER. It is energy efficient, chemical free, and virtually spontaneous; it leaves paper fibers immaculate and undamaged. Deinking of paper prior to recycling increases its furnished value and protects confidentiality. The goal of this Phase-I research is to prove the feasibility of de-inking. ACIM-assisted de-inking.
Presently recycling is done by pulp deinking; no one has attempted "at source deinking of one sheet at a time". The "uncopier" will provide expedient and efficient deinking for paper recycling needs well into the 21st century. Today, 7 million copiers are in use across the US and 1.5 million new copier units are sold each year. Over 12 million tons of scrap paper are generated each year by office workers in the US or the equivalent of 135 sheet of paper per employee per day-which the "uncopier" will effortlessly de-ink.